Research Experiences for Undergraduates at the Rice Quantum Institute

*** Smith The Research Experiences for Undergraduates site at the Rice Quantum Institute of Rice University will be continued. The main objective of the program is to provide undergraduate students with an opportunity to observe and participate in research in a highly-interdisciplinary university research environment with strong faculty support. The program has, and will continue to focus on active participation in research, but also strives to show the participants how the research funding process works, give them insight into applications of basic research, and provide them with an understanding of the fundamental motivations for research activity. Each undergraduate becomes affiliated with one of the 25 research groups at the Quantum Institute, and works on an independent project that he/she can bring to completion in the allotted ten-week time frame. In addition to research activities, a special seminar series for the participants is organized in which invited speakers deal with topics ranging from "hot" topics in research, commercial applications of basic research, entrepreneurship, graduate schools, opportunities for employment, and other topics. ***